Algebraic stacks and their applications

The research project is focused on a broad range of questions concerning
algebraic stacks and their applications. The project is divided into two
parts. The first part concerns foundational problems which have arisen
in recent important applications of stacks such as the geometric
Langland's program, the theory of moduli of stable maps, and the
construction of moduli spaces for higher dimensional varieties. The
second part of the program concerns applications of the theory. In
particular new applications of the relationship between log geometry in
the sense of Fontaine and Illusie and stacks discovered by the PI in
earlier work, generalizations of the theory of twisted stable maps, as
well as applications to the construction and study of moduli spaces for
varieties of general type, abelian varieties, and vector bundles on
curves.

The notion of stack is a tool used to deal with internal symmetries of
mathematical objects, as well as actions of groups. For example, when
trying to classify geometric objects one is naturally forced to deal with
the symmetries of the objects in question. In recent years, the theory of
stacks has come to play an important role in almost every part of
algebraic geometry, arithmetic geometry, and mathematical physics and a
great number of exciting new applications of stacks have been found. This
is not surprising considering the importance of symmetries in mathematics
and other fields of science. This great interest in stacks has brought to
light a number of important problems about stacks. The research project
aims to broaden our understanding of both the foundational aspects of the
theory of stacks and as well as the many applications.